Chemical Education for Public Understanding Project

The Chemical Education for Public Understanding Project (CEPUP) at the Lawrence Hall of Science will develop interdisciplinary materials for use at the middle/junior high school level to introduce students to chemicals and their importance in their lives. CEPUP materials will highlight areas of direct societal concern associated with science and technology. Students will be given chemistry based activities and experiments that focus on the environment, biotechnologies, industrial processes, agricultural practices, alternative energy sources and health science. The CEPUP proposal is a three-year project to revise and field test the four modules produced during the pilot phase, and to develop and evaluate an additional twelve modules nationally. The project has maintained a strong cooperative working relationship with a variety of school systems and professional organizations and will work together with these groups and LAB-AIDS, Inc., to insure the long term widespread dissemination of the materials. The staff and Lawrence Hall of Science are considered highly qualified to conduct this product. The proposal addresses a clear need for improving middle/junior high science and promises to have a substantial impact throughout the nation. The project's goals are consistent with those of the Instructional Materials Development Program.